RIA: Dynamic Behavior and Response of Truss Structures Afterthe Onset of Progressive Collapse

The proposed research deals with investigating the dynamic characteristics and response of truss structures during progressive collapse initiated by a sudden failure of a member of a portion of the structures. In particular, it aims at studying the following: i) changes in characteristics of the structure (e.g., natural frequencies and mode shapes) as the collapse of the structure progresses, ii) response of the structure (e.g., displacements, stresses, etc.) during the collapse, and iii) vibration transmission through the structure. The sudden rupture or failure of members during the collapse of the structure will be adequately represented by initial conditions, and then appropriate analytical and numerical techniques will be employed/developed to solve the dynamic problem. Results from this study are expected to contribute to understand (i) the extent or role of dynamic effects due to sudden failure of members on total collapsing of a truss- like structure, (ii) the probable path along which the collapse progresses, (iii) the probable modes of member failures in the process, and (iv) ways to prevent or minimize any potential collapsing if the structure. The proposed investigation should be useful in practical applications of design of truss-like structures, and in general, to fundamental research on "progressive collapse" of structures on earth as well as in space.